Exploratory Synthesis of n-Type Copper Oxides

This grant will support research in the synthesis of new high temperature superconducting compounds. By identifying new classes of materials which exhibit this unusual behavior, the common features that are identified in the different materials may provide insight into the nature of the physical mechanism responsible for this phenomenon. This grant was selected from more than 260 proposals submitted in response to a solicitation for proposals in High Temperature Superconductivity in April, 1989. The research is supported by the Solid State Chemistry program with a significant contribution from the university.